Instruments and Methods for Determining the Role of Charge in Macromolecular Structure and Assembly

9314040 Laue Previous NSF support of this lab has resulted in the development of devices uniquely capable of measuring macromolecular charge directly in solution and has helped lead the world in the modernization of the analytical ultracentrifuge. The work outlined here will combine and expand these previous efforts to provide the experimental means to examine the role of electrostatic charge in the energetics dictating rnacromolecular structures and interactions. Correlations will be made between measured charge and molecular structures, yielding direct experimental assessments of: 1) the contribution of charge to the stability of the native state of proteins, 2) the change in charge that accompanies structural changes in proteins and nucleic acids and 3) the charge contribution to the energetics of rnacromolecular associations. To accomplish these goals, new instrumentation and methodologies for analytical ultracentrifugation and equilibrium electrophoresis are needed. New instrumentation resulting from this proposal will include: 1) the development of fluorescence detection for the XLA analytical ultracentrifuge, 2) equilibrium electrophoresis devices with greater accuracy, that require less the time to reach equilibrium and need less sample, 3) fluorescence detection capabilities for equilibrium electrophoresis devices, and 4) a new means of determining and regulating small electric fields in a conducting fluid. Improved rnethods for examining rnacromolecular associations will include: 1) on- line determination of extinction coefficients and fluorescence quantum yields to improve the deconvolution of spectra, 2) the use of biologically-produced spectrally- enhanced protein for the analysis of complicated equilibria, 3) combining fluorescence, absorbance and refractive data to increase the concentration range studied and 4) combining results from fluorescence depolarization and sedimentation velocity to better define molecular shapes. Test systems for thes e developrnents will be provided by on-going collaborations involving: 1) the change in charge associated with urea denaturation of proteins, 2) the role of charge in protein-protein and protein-nucleic acid interactions relating to gene regulation, 3) associations involving proteins important to blood coagulation, 4)macromolecular interactions important to proteoglycan structure and assembly, and 5) the change in charge as supercoiled DNA is first relaxed, then linearized. For the first category, charge mutants of T4 lysozyme and "leucine zipper" peptides will be used. For both, good native-state structures are available, and the denatured state is presumed to be a random coil. In the second category, we have used 5-OH- tryptophan-spectrally-enhanced cI repressor to detail the linkage between protein self association and DNA binding. Similar studies with the more complicated CytR-CRP system are being initiated. Fluorescence detection is needed to characterize the tight binding events in these systems. In the third category, long-standing projects involving the structures and interactions of various blood coagulation complexes will continue. Specific fluorescent labeling of many of these proteins is possible, so that the increased sensitivity and selectivity afforded by fluorescence optics, will allow the examination of both higher affinity and more complicated interactions. In the fourth category, work will continue on gathering basic information concerning proteoglycan assembly and their interactions with peptide hormones. In the last category, the charge on plamid dsDNA will be measured when the molecule is in supercoiled, relaxed and open forms, and correlated with hydrodynamic shape and size. Knowledge of the charge in each of these categories has scientific importance beyond the instrumentation development. Likewise, each test system serves as a paradigm for how the instruments and methods developed in this proposal can be applied to other, similar prob lems. Funds are sought for the equipment, supplies and technical personnel needed to: 1) develop fluorescence detection capabilities on the XLA analytical ultracentrifuge, 2) refurbish/replace a circular dichroism instrument, 3) continue the development and optimization of equilibrium electrophoresis equipment and 4) continue ongoing collaborative experiments on equilibrium electrophoresis and the analysis of heteroassociating systems by sedimentation and equilibrium electrophoresis.